Board on Earth Sciences and Resources and Its Activities

The National Academy of Sciences is provided with support for the Board on Earth Sciences and Resources and its Activities. The work will be conducted by the Division on Earth and Life Studies, Board on Earth Sciences and Resources. The Board on Earth Sciences and Resources provides the focal point for National Research Council activities related to the Earth sciences. Through its committees, panels, and working groups, it provides independent advice on a wide range of Earth science issues, including those involving basic and applied research, the environment, natural hazards, resources, data (from acquisition and archiving to dissemination and management) and education. It also provides guidance on U.S. participation in international Earth science programs.